PYI: Digital Signal Processing for Hearing Aids and Source Localization

Buckley In the general area of Source Localization Estimation (SLE), this research will: 1. continue SLE algorithm performance evaluation(s); 2. investigate algorithm improvements based on considerations of analytical performance expressions derived during the course of this project; and 3. address the combined issue of robust estimation and high resolution in the presence modeling errors. In the area of acoustical/biomedical digital signal processing, specifically hearing aids, effort will be directed towards the specification of algorithm constraints and appropriate cost functions, incorporating robustness and real- time testing both in the laboratory and in the field. Adaptive methods will be examined for use in active noise cancellation of undesired nonstationary noise.